CSR-CSI: Software Environment for Real-Time Non-Rigid Registration using Commodity and Grid Computing

In this project we will focus on four important aspects (requirements)
of an end-to-end software environment for performing multiple parallel
non-rigid registrations over the Grid. Our application is Image Guided
Neurosurgery (IGNS). IGNS is an important tool for neurosurgical
resection which is a common therapeutic intervention in the treatment
of malignant brain tumors.

The four requirements we will study in this project are: (1) the
high-performance of the parallel and distributed non-rigid
registration code by dynamically balancing the processors work-load,
(2) the ease-of-use from medical doctors (radiologist) of a
web-service by developing a Graphical User Interface (GUI) for clients
of our web-service (3) the portability of the code to run from a
single high-end workstation to more than one clusters of workstations
within the local and wide area networks available to research
hospitals and medical centers, (4) the reliability by guaranteeing
that part of the system will complete the computations for the image
registration and by making sure we meet the time constrains by
acquiring and re-configuring the system at runtime to compensate for
lost (faulty) computing resources.

The end-product will be a prototype of an IGNS web-service. However,
this project will have broader impact to image guided therapy because
the same framework (but different modalities and finite element
approximation models) can be used in prostate biopsy and treatment,
and liver cryotherapy.